Instrumentation for Novel Laboratory Instruction in Undergraduate Statistics Curricula

Laboratory instruction is employing calculation and plotting as means for exploration and learning in statistics. Also, the scientific content of undergraduate statistics curricula is being enriched with advances in statistical/mathematical computing and state-of-the-art computer intensive statistical methodology. In particular, a foundational laboratory course in statistical computing provides the students with a broad introduction to numerical, graphical and symbolic computation, as well as promotes active learning via the use of calculation and plotting.